Boston Area Advanced Technological Education Connections (BATEC)

The Boston Area Advanced Technology Education Center (BATEC) transforms education the information technology (IT) professional for the 21st century by: (1) developing curriculum that is regionally connected, advanced in content and pedagogy, and industry-linked; (2) providing professional development experiences for educators so they can deliver relevant, standards-based programs of instruction that model the reality of the workplace; (3) attracting and advancing a diverse population of technology students who can effectively meet the challenges of emerging technologies and changing economies; and (4) connecting education, industry and community to promote mutually beneficial partnerships. The Center focuses on pedagogical transformation to assist educators in the successful adaptation, enhancement, and implementation of "BATEC stamped" curriculum and other best practice materials that provide an articulated sequence of courses in high schools, two-year colleges, and the University of Massachusetts/Boston.